The Seismological Structure of the Tonga Slab and Lau Backarc Basin

9614502 Wiens This research involves the application of advanced analysis methods to data from recent, highly successful PASSCAL experiments in the Tonga-Fiji region to better resolve the seismological structure of the Tonga Slab and Lau back arc basin and address questions concerning the seismic velocity anomalies and mineralogical composition of subducting slabs, the occurrence and behavior of phase transitions in and near subducting slabs, and the depth extent of seismic anomalies associated with back-arc spreading centers. Processes associated with the formation of new lithosphere at spreading centers and its return into the mantle at subduction zones are of primary importance in understanding the dynamics of the earth. This subduction zone with associated backarc spreading center offers the ideal opportunity to image both processes and provide insight into the cause of deep earthquakes. This research is a component of the National Earthquake Hazard Reduction Program. ***